Support for the 37th International Symposium on Computer Architecture (ISCA 2010)

The International Symposium on Computer Architecture (ISCA) is a premier forum for presenting, discussing and debating new and innovative architectural ideas and techniques for advanced computing and communication systems. This symposium brings together researchers in fields related to processor architecture, compilers, chips and systems, for technical exchange on current areas of architectural challenge. This proposal aims to support this highly regarded conference by obtaining travel support for up to 25 from US-based students in order to defray the costs of attending and participating in the ISCA conference in June, 2010 in San Malo, France.